SSC: "Kids Investigating and Discovering Science"

The University of California (UCI) Summer Science Camp Academy is directed toward increasing the interest, participation and success of Hispanic middle school students in science, mathematics, engineering and technology (SMET). The objectives are (1) to strengthen interest and participation in science and mathematics among male and female students, with limited-English proficiency; (2) to connect science, mathematics, technology, and communication skills to these students' everyday lives and concerns; (3) to involve students in hands-on investigations in science, mathematics and technology-including research in which they participate with Hispanic scientist who serve as role models; (4) to provide career exploration by visits to local industries, and counseling concerning the academic pathway into SMET fields-with Hispanic undergraduate science majors serving as mentors; (5) to involve parents in a comprehensive set of family activities which heighten their understanding of the accessibility of careers in SMET fields to their children and to increace their involvement in their children's education; and (6) to develop the project's science, mathematics, technology and writing activities-including its bilingual instructional approaches-for national dissemination. The focus of the program will be on project-based learning on topics essential for understanding biology: molecular biology, genetics, and their relation to the structure and properties of DNA. Solving problems in these areas will require students to develop and use mathematical, computer, and writing skills. Students will work together in collaborative teams as they conduct hands-on experiments and computer simulations. They will use computer tools to assist them in collecting, analyzing and representing data. They will maintain lab books in which they record their hypotheses, observations, and conclusions. In addition, each team will prepare a research paper; they will them present the paper or ally at the Academy Graduation for participants, their families, school district participants, and UCI faculty and staff. ***